SBIR Phase I: Rapid Sensitive Diagnostic Technology Based On Novel Physical Principles

This Small Business Innovation Research (SBIR) Phase I project is to develop a fluidic wave guide biosensor that employs unique physical and structural features to measure biological pathogens. Preliminary research indicates that this diagnostic technology promises to achieve a combination of speed, simplicity, sensitivity and selectivity significantly superior to that attained by current pathogen detection technologies. The versatility of fluidic waveguides makes it possible for these systems to employ a wide range of detection strategies, including probes based on DNA/RNA, antibodies, aptamers, and immobilized enzymes.

The initial commercial applications of this project will be in research and development laboratories, and in the food and agricultural industries. Additional applications are expected in the markets for medical diagnostics and for homeland defense.